Orphans of the Storm: Saving Orphan Films in the Digital Age

Abstract
IIS-9912077
Smith, Paul A.
University of South Carolina
$35,070 - 4 mos.

This is a standard workshop award. This proposal requests support for a workshop to be held in Columbia, South Carolina, on September 23-25, 1999, to unite researchers in the
area of film and video preservation and digitization with experts in film and video history. The workshop will explore the full scope of material needing preservation and access that are film-based but not traditional major motion pictures. Attendees will include scholars in the humanities, libraries, archives, film history, computer science, and representatives from organizations specializing in film preservation (such as George Eastman House). The workshop would bring together a rather scattered community and look at a new problem, the extension of digitization techniques and digital libraries to
motion picture film outside the context of major studio features.